Student Support for RECOMB 2012

RECOMB (http://recomb2012.crg.cat/) is an international scientific conference bridging the computational, mathematical, and biological sciences. The conference features keynote talks by preeminent scientists, together with presentations of refereed research papers in computational biology, special sessions and poster sessions. This proposal requests travel support for US conference participants, with priority going to graduate students who will be presenting paper or posters.